Purchase of NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at University of Minnesota at Duluth acquire a 300 MHz NMR Spectrometer. This equipment will enhance research in a number of areas including the following: (1) Creation of New Carbon-Carbon Bonds, (2) Halocyclopropyl Ether Fragmentation Applied to the Development of a Substituted Acrolein Anion Synthon, (3) Chemistry of Polyvalent Iodine, and (4) The Regiochemistry of the Hydroboration of 1-Aryl-1-Propenes. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.